PYIA: Noise, Instabilities and Coherent Dynamics of Semi- conductor Laser Diodes

The PI is a Presidential Young Investigator who describes his research as follows: The goals of this research are to obtain increased understanding of the detrimental random fluctuations in amplitude of frequency and polarization from semiconductor laser diodes and to design lasers in which these dynamics can be controlled. It is well known that light-matter interactions that involve intense optical fields give rise to nonlinear mixing of optical waves and parametric generation of new components in the optical spectrum. These same interactions occur inside all laser cavities and crucially effect the dynamics of the laser and the spectral properties of the light it emits. These nonlinear interactions can cause the laser to be highly unstable. Small changes in feedback, pumping, or temperature can trigger drastic changes in the spectral characteristics of the light. Only over the last few years have detailed studies been made on the physical origins of these instabilities in simple laser systems. Modeling has been limited to dilute materials in which the optical gain results from an ensemble of isolated individual atoms or molecules, such as in laser diodes. In addition, we will be measuring and characterizing the spectral and noise properties of laser diodes under various environmental and feedback conditions. Semiconductor laser diodes are used in image scanning systems, fiber optic communication links, optical radar, and optical disk read/write memories. All these systems require a highly reliable source of coherent light. Unfortunately, the light emitted from diode lasers is corrupted by seemingly random fluctuations in amplitude, frequency, and polarization. The goals of this research are to obtain increased understanding of these detrimental fluctuations and to design lasers in which these dynamics can be controlled.